A Core Facility for Teaching Undergraduate Cellular and Molecular Biology

The recent impacts of molecular and cellular biology on the theoretical framework of every biological subdiscipline are causing large numbers of undergraduates in this department of enroll in cellular and molecular biology courses. Sophisticated aspects of molecular and cellular theory presented in lecture require students to reference the current literature frequently, and to engage in appropriate laboratory exercises. These pressures made previously available instructional instrumentation grossly inadequate, forcing the use of obsolete experimental designs. This project is alleviating these difficulties by providing two refrigerated centrifuges, an ultracentrifuge and rotors, an inverted fluorescence photomicroscope, eight horizontal electrophoresis stations, a DNA sequencing system, apparatus for the separation of chromosome-sized DNA fragments, deep freeze, incubator/shaker, five UV/VIS recording spectrophotometers, vacuum oven, photographic recording system for agarose gels, and a water purification system. The result is to provide sufficient numbers of modern centrifuges and spectrophotometers to execute smoothly laboratory experiments on subcellular fractionation, enzyme reaction kinetics, and molecular cloning; to permit curricular change in the form of advanced laboratory exercises such as macromolecular localization and DNA sequencing; and to make available state-of-the-art instrumentation for student research projects in all fields of biology. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.